The Black Hole Project

The Denver Museum of Nature and Science is producing "Realm of the Black Hole," a one-hour high definition television program for the PBS science series NOVA and "Black Hole: The Other Side of Infinity," a twenty-minute full motion program for planetarium theaters. Both of these media products will draw upon a large-scale visualization effort conducted by leading scientists in collaboration with the National Center for Supercomputing Applications. The shows will examine the broad revolution now taking place in high-energy astrophysics by using scientific simulations and data-based animations to illustrate the life cycle of stars and the birth of galaxies. The two presentations will be supported by a website designed for use by the general public and by outreach materials and resources for teachers and informal educators.

The media production will be under the direction of Thomas Lucas, President of Thomas Lucas Productions, Inc., and co-produced by Donna Cox, Professor, School of Art & Design, University of Illinois at Urbana-Champaign. Paula Apsell will be the Executive Producer for the NOVA program and Joslyn Schoemer will be Executive Producer for the planetarium show. The Science Advisors include Roger Blandford, Professor, Theoretical Astrophysics, California Institute of Technology; Laura Danly, Space Science Curator, Denver Museum of Nature and Science; Michael Norman, Professor, Astrophysics, University of California, San Diego; Harvey Tannanbaum, Director, Chandra X-Ray Center at the Smithsonian Astrophysical Observatory; and David Thompson, Astrophysicist, Laboratory for High Energy Astrophysics, NASA Goddard Space Flight Center.